Collaborative Research: Workshop on Linking NSF SED/SDR Data to Scientific Productivity Data

This proposal funds a workshop that brings together researchers to explore possibilities for matching U.S. patent records and publication records to doctorate-level holder data from NSF's Survey of Earned Doctorates and Survey of Doctorate Recipients.